Adaptive Control of Hot Isostatic Pressing (HIP) for Metal Matrix Composite Fabrication

93621117 Mehra Fabrication of Metal Matrix Composites (MMC) requires the use of sophisticated manufacturing processes. One such process is Hot Isostatic Pressing (HIP) which is becoming a key technology for consolidating MMC airframe structural panels for advanced aircraft. The objective of proposed effort is to develop a hierarchical two level adaptive optimizing controller using, techniques of Modern Control Theory, System Identification and Neural Networks. The Level 2 controller minimizes the ultimate cost per unit of production and the Level 1 controller regulates the HIP process to achieve optimal temperature and pressure profiles dictated by the Level 2 controller. Phase I research includes (i) a State-of-The-Art survey (ii) identification of Level 1 process models from real data (iii) the design of an adaptive Model Predictive Controller (MPC) (iv) testing of the MPC controller and (v) development of architecture for Level 2 controller. IBIS Associates, a leader in the field of materials technology will provide subcontract support. Industrial Materials Technologies (IMT), the largest HIP consolidator in the world, has indicated their willingness for supporting the Phase I effort. ***